Formal Methods Visualization

CCR-9988357
J Strother Moore & Chandrajit Bajaj
U Texas Austin

The proposed work will enable real-time interrogative visualization and steering of
the data-intensive computations of applied symbolic logic, in support of hardware
and software verification.

The microprocessor industry is finding increasing use for mechanized formal methods:
the mathematical specification and mechanized symbolic analysis of hardware and
software systems. For example, the ACL2 theorem prover has been used by Advanced
Micro Devices, Inc., to find bugs in the AMD-K7 TM floating-point hardware, bugs
that had escaped over 80 million test vectors. Theorem provers also enable symbolic
simulation of new designs from formal specifications and security analysis of
devices for use in e-commerce (see below). Such applications represent the practical
emergence of applied symbolic logic.

Formal logic is the mathematical tool of choice for modeling computing
systems, in exactly the same sense that differential equations are the tool of
choice for modeling physical systems. While study of logic is well established, the
application of logic is new, because until the invention of the digital computer,
engineered artifacts were essentially mechanical. The semiconductor industry is now
turning to logic-based mechanized tools because models of modern processors are too
complex to analyze any other way; and that complexity cannot be eliminated because
it is used to buy speed and speed provides the competitive edge.

The semi-automatic theorem provers that make such analysis possible are industrial-
strength symbol manipulation engines. These engines process symbolic data
representing logical formulas. Intermediate formulas may consume megabytes of
storage. The engines explore vast search spaces determined by thousands of
definitions and theorems in data bases created by various design team members.
Proofs may contain millions of primitive inference steps. The engines use decision
procedures where feasible and are otherwise guided both by heuristics and the human
user.

Due to the computational intensity of the problem, today's semi-automatic deduction
engines are designed for use in an iterated guess style, where the guess
determines the search space. When a proof attempt fails, the rea-son is often
mathematical rather than search-strategic. The user's role is creative: diagnose the
problem and invent the mathematical abstractions necessary to facilitate proof. This
may require defining new formal concepts to state generalizations or decompositions.
Such input from the user fundamentally alters the search space.

The research proposed here will produce a new paradigm for semi-automatic theorem
provers in which the user steers the system in real time. Visualization paradigms
for symbolic data and symbolic manipulation will be developed, including what we
call symbolic spreadsheets which allow inter-related symbolic data to be displayed
coherently. The search space will be explicit, visible and dynamically computed.
Structure will be imposed via the definitions and lemmas in the data base. Four
fundamental research topics will be addressed: (i) selection of the abstract
entities to be visualized, the visual reification of these abstractions, and the
requirements for effective steering; (ii) visualization algorithms for efficient
display and interrogation of symbolic logical data and processes; (iii) theorem
proving algorithms producing human surveyable proofs while allowing real-time
interaction; and (iv) a client/server model of semi-automatic theorem proving
allowing the visualization and deduction engines to be decoupled but interoperable.

This is an ideal setting in which to study the visualization of symbolic data
processing, with a clear path to immediate and critical applications in the
semiconductor industry and, due to the pervasiveness of formal systems in computing
(e.g., programming languages) promising connections to much wider applications. The
research will deeply affect both applied logic and visualization.